Experimental Particle Physics

This award will provide support to a group from Rutgers University to pursue research in high energy physics. The group will continue research with the AMY detector at the TRISTAN accelerator in Japan and will begin CP violation experiments at Fermilab. The AMY detector provides data from electron-positron annihilations at a center of mass energy of 60 GeV. During the next two years the accumulated data should increase by about a factor of five over that presently recorded. This will allow precision tests of the Standard Model of weak interactions to be made by measuring the large forward-backward charge asymmetries of the produced lepton and quark pairs. The program to measure CP violation is centered on the measurement of the decay of neutral kaons to a final state consisting of a neutral pion, an electron and a positron. In addition a future program of measuring CP violation parameters is planned for a phi-factory.